Crossdip Processing of Swath 3D Seismic Reflection Data

Recent studies by the principal investigator show that the midpoint scattering in 2D multichannel seismic studies can be used to advantage by processing that takes into account the 3D character of the data and of the geology. The final products are a much improved stack, determinations of structural dips at right angles to the survey line, and a significantly improved velocity model. Further improvements in the developed automatic techniques for extracting local crossdip moveout and producing optimum crossdip stacks will be pursued. These techniques will be made available to the community.